CAREER: Modeling Linguistic Competence and Performance in a Hybrid Connectionist Framework

A central aspect of a natural language understanding (NLU) system is the creation and manipulation of complex symbolic structures that encode grammatical knowledge. However, equally important is the ability to weigh numeric influences, such as lexical frequencies, that determine the preferred interpretation of an ambiguous utterance. Traditional approaches to NLU have emphasized the symbolic aspects of language, while connectionist models have focused on the numeric aspects. In this research, a hybrid connectionist framework is developed that fully integrates the two types of knowledge within a uniform computational approach. Within an implemented prototype, symbolic feature passing encodes the rich grammatical structures of a recent linguistic theory, while competitive numeric processing captures the influences that disambiguate an utterance. This project involves a number of extensions to the model that necessitate significant developments in the integration of symbolic and numeric processing within a parallel network architecture. Novel algorithms are explored within distributed symbolic processing and the control of complex competitive dynamics, especially focusing on the structural and numeric influences of individual lexical information. The research also investigates the hypothesis that accurate numeric preference information can be extracted from large text corpora.